Studies of Supernovae and Supernova Remnants

Kirshner, Robert 95-28899 Dr. Kirshner will continue his program to study supernovae -- to gather observations of the brightness, color and spectra of supernovae. The goals are to understand how stars explode, to assess the supernova contribution to the heavy element abundance of galaxies and to use supernova explosions as tools for measuring the size and the age of the universe. ***